Travel: NSF Student Travel Grant for 2026 International Symposium on Modeling and Optimization in Mobile, Ad hoc, and Wireless Networks (WiOpt)

This proposal seeks to fund US-based students to attend the 2026 International Symposium on Modeling and Optimization in Mobile, Ad hoc, and Wireless Networks (WiOpt), held in Columbus, Ohio on June 3-6, 2026. WiOpt is a premier international forum that attracts high-quality, forward-looking research contributions and provides a vibrant forum for technical and professional exchanges. WiOpt 2026 will expose selected students to cutting-edge developments in the field and enable interactions with world-leading researchers. Students will gain feedback on their ongoing work, broaden their academic perspectives, and build lasting professional connections.

WiOpt 2026 will feature topics on next-generation 6G networks, including AI/ML techniques for semantic and goal-oriented communications; security, privacy, and trust; distributed or multi-agent learning; and integrated sensing and communications (ISAC).

This project supports students from US universities to attend the 2026 WiOpt conference in person. Students will have the opportunity to present their work and be exposed to state-of-the-art developments in the field. They will also have the opportunity to interact with peers from institutions worldwide, meet with senior researchers, and participate in discussions that are likely to shape the future of the field.